Workshop of the Social Transition in the North Project

ABSTRACT OPP-9633690 Cochran, Jorgensen, Black, Kraus This proposal is for a series of workshops and working sessions to coordinate the scientific data and results of the project "Social Transitions in the North: Alaska and the Russian Far East" (OPP-9496351). The Principal Investigators of the original project, Steven McNabb, Alexander Pika, and William Richards, died while doing fieldwork in the Russian Far East. They were completing the fourth year of a study examining social change and health in Native villages in Alaska, the Aleutian Islands, Chukotka and Kamchatka. The Alaska Native Science Commission (ANSC) will serve as successor institution and coordinate the activities of a senior advisory group which will oversee the completion of the project. This group consists of Patricia Cochran, Executive Director, Alaska Native Science Commission, Professor Lydia Black, University of Alaska Fairbanks, Professor Joseph Jorgensen, University of California Irvine, and Professor Robert Kraus, University of Kentucky. The ANSC will convene the meetings, facilitate the archiving of project materials, manage the budget, and help produce a final report.